Conference on The Biology, Chemistry and Modelling of Vision: Visual Processing; June 21-26, 1992; Saxton's River, Vermont

The "Conference on The Biology, Chemistry and Modelling of Vision: Visual Processing" will be held at Vermont Academy in Saxton's River, Vermont from June 21-26, 1992 in association with the Federation of American Societies for Experimental Biology (FASEB). Thirty-four invited speakers from different subareas of retinal research will provide both depth and breadth to the conference. This is the first FASEB meeting on the topic and the organizers have invited major leaders in the field of retinal processing. The conference is open to an additional 120 scientists without invitation, on a first-come basis and afternoon poster sessions have been organized for voluntary presentations. The conference offers an excellent opportunity for scientists using the retina as an experimental and/or model system in neuroscience to interact and share their expertise. Approximately one-third of the funds provided by NSF will be used for women and minority participants.